Supporting Pathways for Advancing Readiness in Computing: AI, Mathematics, Cybersecurity and Statistics

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at Illinois Institute of Technology. A total of 22 scholars pursuing bachelor's and master's degrees in artificial intelligence, applied mathematics, computer science, cybersecurity, data science, operations research, and statistics will receive scholarships averaging $15,000 for up to five years. Scholars will receive faculty and peer mentoring, and the project will build strong scholar cohorts through experiential and interdisciplinary learning experiences. Additional activities for scholars include community building and career advancement activities.

The overall goal of this S-STEM Track 2 project is to increase STEM degree completion of academically talented, low-income undergraduate and graduate students with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the workforce in computing and other key areas of need. The project will be assessed by an experienced evaluator that will provide timely and adaptive feedback, and the data generated will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF's Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.